Prestressed Concrete Girders with Openings under Static, Dynamic, Fatigue, and Ultimate Loadings

This project will investigate the fatigue life and dynamic load supporting capacity of simple and continuous prestressed concrete girders with various size openings through the girder. The results will be of benefit for industrial buildings supporting machinery of all types.